A Team Approach for Effective Integration of Technology in the Teaching of Mathematics at the Middle and High School Grades

This three year project for the special initiative, "Projects to Promote the Use of Technology in the Teaching of Science and Mathematics", is designed to effect change in mathematics education by integrating technology into the classroom. The project will focus on graphing calculators and symbolic manipulators, and will include the use of spreadsheets, CD ROMs, and state-of-the-art software in teaching and learning statistics, discrete mathematics, number theory, computation, geometry, algebra, and advanced mathematics. The project aims to alter instructional and learning strategies by incorporating technology with content knowledge and cognitive skills. The program will develop instructional materials and classroom models for effective integration of the technology. Participants will be selected in teams of five grade 6-12 teachers to facilitate coordination between middle and secondary schools. The ten teams selected will participate in three-week summer workshops for three summers and in follow-up activities during the subsequent academic years. Set in southeastern Wisconsin, the targeted schools are in areas with large minority populations, and special attention will be paid to stimulating the interest of under-represented groups in mathematics. The project will promote the ownership of the teachers' role as effective change agents for mathematics education within and across districts. This project is mainstream - oriented squarely in the direction currently advocated by the mathematical community.